Research on a Low Cost Tuned Mass Damper

This Phase I study will examine the feasibility of SANDAMPER technology as applied to the damping of tall buildings and structures. Its success and extensive application already to the guy-wires of tall TV towers affords a high degree of confidence in the proposed. The study concerns an analytical investigation of a low frequency damping method as it might be applied to high-rise building structures subject to wind-induced vibration or instability. In the feasibility study it will be determined if the size of the damper can be scaled up to the large dimensions required for high-rise buildings applications. This study is concerned with a specific innovative type of damper, the SANDAMPER, which would be employed in a semi-passive mode as a tuned mass damper (TMD). The object is to develop design information from fundamental scientific precepts, and to indicate practical applications.